Acquisition of a 400 MHz NMR Spectrometer

This award from the Academic Research infrastructure Program will help the Department of Chemistry at San Diego State University acquire a 400 MHz NMR spectrometer which will be used in research. The research activity to be supported includes the transmetallation of organic groups between boron and metals, designing new helical metal ligand systems for use as asymmetric catalysts, the synthesis of bromofluoroalkanes, studying the electrochemistry of redox-dependent receptors of organic molecules, and hormonally- regulated integral membrane ecto-ATPase. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.